Institutional: Presidential Award for Mentoring

University of North Carolina (UNC) Mathematics and Science Education Network (MSEN)
Gerry Madrazo, Jr.
HRD-9814737
Operating at ten UNC campuses, MSEN employs a pre-college program for students and a teacher professional development component to enhance K-12 science and mathematics student achievement. Operating since 1984, the MSEN program has an annual enrollment of nearly 3,000 7th and 8th grade students and 5,000 teachers. About 1,000 MSEN participants have graduated from high school. In 1994, 65% of the MSEN participants who graduated from college pursued a math or science related major.